U.S.-Mexico Program: Latin American Seminar in Biological Rhythms; Puebla, Mexico, August 31-September 3, 1997

9722726 Block This Americas Program award will support travel and related expenses for 9 U.S. scientists to participate in the "Latin American Seminar in Biological Rhythms," to take place in Puebla, Mexico, August 31 to September 3, 1997. Organizers are Dr. Gene Block, University of Virginia, and Dr. Raul Aguilar-Roblero, Universidad Autonoma de Mexico. The topic of the proposed meeting is circadian biology, and the goals are to provide a forum for academic interactions among U.S. and Latin American scientists interested in the field of chronobiology; to provide graduate students from participating countries with the opportunity to interact with established scientists; and to promote the exchange of students. During the past two decades there has been a tremendous growth in our understanding of biological timing. Biological clocks play a critical role, not only in the control of behavior and physiology, but also in the measurement of daylength, and in solar orientation and navigation by a number of species. In humans, few processes escape the impact of timing systems. The US participants are recognized for their contribution to the study of biological rhythms and for their commitments to the education of graduate students. They represent different areas of basic biological rhythms research, ranging from the molecular level to behavior, and from unicellular organisms to vertebrates. A report on the main conclusions of the sessions, with specific suggestions related to joint research, the exchange of graduate students, and development of a basic curriculum in chronobiology graduate courses, will be submitted for publication in the Archives of Medical Research. ***